Improving Proposal Submissions to NSF Thru the S-STEM Program

This Scholarships in Science, Technology, Engineering and Mathematics (S-STEM) program special project is designed to assist proposing Principal Investigators (PIs) in developing more competitive proposals; thereby, enhancing the quality of proposal submissions and broadening the participation of PIs from various backgrounds and institutions. This proposal enhancement activity consists of sponsoring a one-day workshop inclusive of presentations focused on effective proposal writing as well as a forum for prospective PIs to discuss specific questions related to their proposals with NSF Program Directors working in the S-STEM program. The workshop is designed to accommodate fifty participants from various institutions throughout the country. Universities that have traditionally been unsuccessful in receiving S-STEM awards as well as institutions that serve historically underrepresented students are targeted for participation in the workshop.